FASEB Summer Research Conference: Cellular and Molecular Genetics, June 19-23, 1989, Vermont Academy, Saxtons River, Vermont

The FASEB Conference on Somatic Cell Genetics will be held at the Vermont Academy in Saxtons River, Vermont from June 19, 1989 to June 23, 1989. This meeting, which has been highly successful in past years, brings together scientists and students from different fields of research in a atmosphere which encourages intellectual interaction.